Oceanographic Instrumentation

9731301 Willis This award to Oregon State University will provide instrumentation for oceanographic research for use on R/V Wecoma, a research vessel operated by Oregon State University as part of the University National Oceanographic Laboratory System research fleet. Specific instruments to be acquired include an oxygen sensor, a compact disk recording system and upgrades to the shipboard analog-digital network. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Northeast Pacific Ocean, in 1997 and in future years. ***